Biophotonics: Dynamical Cellular Imaging by Compact Arrays of Blue and Ultraviolet Light Emitting Diodes

0423566
Nurmikko
The proposed research will adapt and advance compact wide bandgap semiconductor light emitter devices (LEDs) at short wavelengths for their application to imaging of biological materials/systems. In particular, they will design, fabricate, and tailor blue and violet LEDs into versatile multi-element arrays that will enable the real-time imaging of the dynamics of neural cell networks via fluorescence-based excitation, on-chip. Further, ultraviolet LEDs will be employed to impart photochemical excitation of such cellular networks in a spatio-temporally selective manner for the goal of implementing an interactive interface between neural circuits and man-made optoelectronic circuits.